SHF: Medium: RacePro: Automatically Detecting API Races in Deployed Systems

While races in multithreaded programs have drawn huge attention from the
research community, little has been done for API races, a class
of errors as dangerous and as difficult to debug as traditional thread
races. An API race occurs when multiple activities, whether they be
threads or processes, access a shared resource via an application
programming interface (API) without proper synchronization. Detecting
API races is an important and difficult problem as existing race
detectors are unlikely to work well with API races.

Software reliability increasingly affects everyone, whether or not
they personally use computers. This research studies and
automatically detects for the first time an important class of races
that has a significant impact on software reliability. The study
quantitatively demonstrates how API races are numerous, difficult to
debug, and a real threat to software reliability. To address this
problem, this research is developing RacePro, a new system to
automatically detect API races in deployed systems. RacePro checks
deployed systems in-vivo by recording live executions then
deterministically replay and check them later. This approach
increases checking coverage beyond the configurations or executions
covered by software vendors or beta testing sites. RacePro records
multiple processes and threads, detects races in the recording among
API methods that may concurrently access shared objects, then explores
different execution orderings of such API methods to determine which races
are harmful and result in failures. Technologies developed will help
application developers detect insidious software defects, enabling
more robust, reliable, and secure software infrastructure.